National History Day Workshops on History of Science and Technology in Secondary Schools

The theme for National History Day 1990 is "Science and Technology in History". It represents an excellent opportunity for teachers of history of secondary schools to encourage their students to explore interrelationship between science, technology and society -- past and present. This project will both identify and develop classroom materials to implement the theme. Five modules will be developed. Three of these will focus on Physics in History, Chemistry in History, and Biology in History. The modules will include general definitions and key terms, a discussion of the development of the specific science, description of major figures and their contributions, a time-line noting some main events in the history of that science, an extensive bibliography (including information on audiovisual materials), and a section containing suggested instructional strategies and a list of topics for further investigation. The final two modules will focus on the impacts of science and technology on society, and will include an historical overview of specific impacts as well as a discussion of modern concerns. A bibliography, and a list of instructional strategies will be included as well.